1989 U.S. Conference on GaAs Manufacturing Technology October 1989

This grant applies funds transferred to NSF by DARPA to the support this conference of mutual relevance to be held in Nashville, Tennessee, November 9-11, 1988. This meeting is being held in conjunction with the GaAs Integrated Circuit Symposium.